SBIR Phase I: Intelligent Surveillance Camera

Intelligent Automation Inc. will develop a smart camera system which will not only provide a wide field view, but more importantly, will be capable of detecting moving objects or persons within that field and capturing high resolution images using a servo-controlled narrow field camera. This smart camera concept offers next generation performance over existing systems, and is targeting applications in surveillance systems, intruder detection, motion detection and multimedia human computer interface systems.